Collaborative Research: The impact of symbiont-larval interactions on species distributions across southwestern Pacific hydrothermal vents

Symbiosis with microbes is ubiquitous and critical to fundamental biological functions such as development and nutrition. Thus, the success of a host animal may depend on its ability to find and associate with its microbial partner(s). While some hosts directly transmit their symbionts from parent to offspring in order to guarantee this, acquisition of microbial symbionts from the environment is vital for the survival of many obligately-symbiotic animals. An understanding of the free-living symbiont population and how the host acquires those symbionts is fundamental to our comprehension of ecological processes in all ecosystems, yet almost nothing is known about either. Hydrothermal vent ecosystems provide important opportunities to investigate the role of microbial symbionts in host-, community-, and ecosystem-level ecology, since these ecosystems are dominated by animals whose survival is clearly linked to the acquisition of one or a few specific symbionts. This project begins to fill a gap in our understanding of the factors driving community structure at hydrothermal vents by addressing the potential for free-living symbiont populations to affect host animal establishment, while also expanding our general knowledge regarding the impact of host-associated microbes on fundamental ecological processes that apply across ecosystems. The results of this project will be shared via educational videos and live-broadcasts to the Smithsonian Institution's National Museum of Natural History and University-run museums. The investigators will also design and implement an educational program about symbiosis and hydrothermal vent biology suitable for middle and high school classes. Finally, the investigators will train a diverse group of undergraduate and graduate students in both research and the development of science educational programs.

This project will focus on two sister genera of snails, Alviniconcha and Ifremeria, which predominate at vents in the southwestern Pacific. At vents in the Lau Basin (Tonga), three species of Alviniconcha and one species of Ifremeria coexist. These four species all host distinct lineages of chemoautotrophic proteobacteria in their gill tissue as adults that provide the bulk of their nutrition. Previous work in this region showed a structured snail species distribution that corresponds to the concentrations of key chemical substrates for symbiont chemoautotrophic metabolism, suggesting that snail species are sorting into geochemical habitats based on symbiont physiology. It is not clear if this sorting is occurring among established snail-bacteria symbioses, or whether environmental effects on the availability of specific symbionts are influencing the recruitment of host species, since arriving and developing snail larvae must obtain their symbionts from the environment. This study aims to 1) assess the larval supply and population structure of symbiotic vent snails via collections of larval, juvenile, and adult snails, 2) investigate the developmental timing of symbiont acquisition through microscopy and marker gene sequencing of gametes, larvae, and juveniles, and 3) use metagenomic sequencing to quantify the availability of free-living symbionts in the environment to arriving larvae. Altogether, this series of interlinked efforts will allow for an improved understanding of free-living bacterial symbiont populations, the timing of symbiont acquisition, and host snail life history, as well as how these things interact to shape vent communities.